Indigenous Ways of Knowing & STEM: A Conference focused on the Successes, Tensions, & Possibilities for Learning

The overarching goal of this conference is to bring together scholars and students to focus on current issues and understandings in STEM education for Native students and to consider potential directions for future research on STEM education. The investigators propose to gather a group of approximately 30 scholars from various disciplines and areas of expertise together to discuss issues related to STEM education for a one-day conference in February directly following or directly before the AAAS annual meeting. In addition to these invited researchers, they will invite Indigenous students and local scholars with related interests. The conference will consist of three symposia, a student poster session, clustered round tables intended to cross-fertilize potential collaborations in research on teaching and learning, and a featured keynote address.